Topics in Riemannian and Complex Geometry

Abstract

Proposal: DMS 9802722
Principal Investigators: Michael Anderson and Claude LeBrun

Anderson and LeBrun will explore new relations between the geometries
and topologies of low-dimensional manifolds. The main theme of this
research is the relation between the scalar curvature functional and
manifold topology. In dimension 3, Anderson will continue his program
to prove Thurston's geometrization conjectures from this point of
view, and study relations between this and Einstein metrics on
4-manifolds. In dimension 4, LeBrun will study relations between the
scalar curvature functional, Weyl curvature, Seiberg-Witten theory,
and the existence of Einstein metrics. LeBrun will also work on
related problems in higher dimensions.

The scalar curvature functional was introduced by Einstein and
Hilbert, and plays a fundamental role in Einstein's theory of General
Relativity. Anderson's investigations have a direct bearing on
questions regarding the physics of black holes and the shape of the
universe. In a similar way, LeBrun's work studies fundamental
questions arising from Hawking's quantum gravity program, and ties the
Seiberg-Witten equations of high energy physics to the study of
gravitational phenomena.